CC* Integration: End-to-End Software-Defined Cyberinfrastruture for Smart Agriculture and Transportation

Imaging and other sensor-based understanding of plant behavior is becoming key
to new discoveries in plant genotypes leading to more productive and environment-friendly farming.
Similarly, distributed sensing is seen as a key component of a safe, efficient, and sustainable autonomous transportation systems.
Existing research and education in agriculture and transportation systems are constrained by the lack of connectivity between field-deployed testbed equipment and computing infrastructure. To realize that connectivity, this project proposes to deploy CyNet wireless networks to
connect experimental science testbeds to high-performance cloud computing infrastructures.

The CyNet project will:
1) deploy Predictable, Reliable, Real-time, and high-Throughput (PRRT) wireless networking solutions using the standards-compliant, open-source Open Air Interface software framework and commodity Universal Software Radio Peripheral (USRP) hardware;
2) integrate these wireless networks with software defined networks to seamlessly integrate outdoor cameras, sensors, and autonomous vehicles, and connect these components to high performance cloud computing systems;
3) implement an infrastructure virtualization system that partitions CyNet into programmable, isolated experiments; and
4) create an infrastructure management system that performs admission and access control and establishes specified resource allocation policies.